Molecular Simulations of Biological Active Matter

Garegin Papoian of the University of Maryland College Park is supported by an award from the Chemical Theory, Models, and Computational Methods Program in the Division of Chemistry to develop, optimize, and apply the MEDYAN (MEchanical DYnamics of Active Networks) computational framework for modeling chemomechanical active matter. The Condensed Matter and Materials Theory Program in the Division of Materials Research also contributes to this award. Traditional states of matter, such as solids, liquids, and gases, self-organize through interactions among constituent molecules. Active matter, on the other hand, arises from external energy-driven self-assembly. Such systems are challenging to model due to the strong intrinsic coupling of chemistry and mechanics. Active matter has emerged as a new frontier in science, at the interface of chemistry, materials physics, and biology. In fact, the cells in one's body can be viewed as a form of highly complex active matter, where the external energy is derived from food. Within each cell, an elaborate interplay of interacting molecular motors, self-assembling filaments, the cell membrane, and organelles continuously convert chemical energy into forces that determine cellular shape, motility, and sensing of the extracellular environment. Papoian's group, by developing and applying the MEDYAN software framework, is working toward the grand challenge of modeling individual cells in all of their extraordinary complexity, by incorporating new models of the cell's constituent chemical, mechanical, and transport processes. MEDYAN is thus enabling critical new understanding of the molecular principles underlying cellular active matter. As part of this project, MEDYAN is being used to study self-assembly and structural stability of dendritic spines in neurons, which support formation of long-term memories in the brain, and cell shape oscillations, whose origin and biological role are not well understood. The software has applications to biomaterials as well as to cell biology and is expected to advance the national health. MEDYAN is being made available to the public as open source software, and an active matter community website and learning resource is being developed as part of the project. Research is coupled with education and outreach through inclusion of high school students in lab research, and ongoing efforts to expand diversity in applicants within the university's chemical physics program.

This project is extending MEDYAN to support essential components of eukaryotic cell modeling. These include a deformable, chemically-active plasma membrane model expressed in terms of a 2D mesh and associated Voronoi polygons; incorporation of a free energy penalty for in-plane and out-of-plane membrane deformations; steric and tethering interactions of cytoskeletal filaments with local membrane patches; volumetric forces due to osmotic pressure or associated with the volume conservation; and reaction-diffusion of membrane bound proteins, including the ability of some proteins to induce spontaneous membrane curvature. These advances are further leveraged to formulate computational models for internal organelles such as the cell nucleus. In addition, a model is being constructed to describe self-assembly of spectrin proteins into a dynamically rearranging 2D sheet transiently tethered underneath the plasma membrane. To achieve the computational efficiency needed for simulating at biologically-relevant length- and timescales, MEDYAN is being parallelized on state-of-the-art CPU and GPU architectures. These new modeling and simulation capabilities are being used to study two important problems in cell biology: the molecular underpinnings of the structural stability of dendritic spines, which underlie the stability of long-term memories in animals; and collective oscillatory cycles, propagating as a migrating front from one cell to another, which are based on a cytoskeletal phenomenon called pulsatility. For both of these projects, there is close collaboration with an experimentalist on iterative model development and validation. This next generation of MEDYAN is providing important new modeling capabilities with applications to programmable matter integrating active and non-active components to achieve smart materials with unique properties. The MEDYAN software and documentation are freely disseminated as open source. As part of this project, Dr. Papoian is creating a community web resource centered around active matter, with class-ready educational materials for secondary schools, undergraduate and graduate courses, and research sections bringing together information on publications relating to active matter and the scientific groups working in the field.